Improvement of the Laboratory Experiences for Upper DivisionChemistry and Biology Students

The Department of Science and Mathematics at Coker College will incorporate into its curriculum more laboratory experience for its upper-division chemistry and biology majors. This project adds a course in quantitative chemistry and new laboratory exercises to the extant courses in physical chemistry, cell physiology and plant physiology.